Individual: Presidential Award for Mentoring

Jesse M. Nicholson
Howard University
HRD-9814718
During his 32-year tenure at Howard University, Dr. Nicholson has served as advisor to 14 doctoral students, 9 master's degree students and countless undergraduates. Under Dr. Nicholson's stewardship there has been a 100% increase in total enrollment in Howard's chemistry program and in the number of students pursuing doctoral degrees in chemistry. The program annually produces 20-25% of the nation's African American Ph.Ds. in chemistry. Dr. Nicholson also collaborates in a precollege program that allows high school students to experience hands-on scientific research at Howard.